Mathematical Sciences: Research in Optimal Control and Optimization

Professor Warga is a prominent senior investigator who has made many contributions to the theory of optimization. In this project he proposes to develop higher order conditions for optimality by applying a new result called "Nonsmooth Open Mapping Principle". The higher order necessary conditions of optimality are used to verify solutions obtained from the first order necessary conditions. Sometimes the problem is mathematically degenerate and the first order conditions provide no information on the nature of the optimal solutions. In both cases, the second order conditions are useful. Nonetheless, the development of general second order conditions is a difficult mathematical problem. Professor Warga succeeded recently in developing such results and intends to pursue this line of development. The novelty and difficulty of his approach is in the use of a nonconvex set of admissible variations. This is the first time anyone has succeeded in doing this. Several other directions of work are described in this project: optimal control problems with constraints imposed on the system's state, differential games with nonadditively coupled controls, problems with delays, and computer implementation of theoretical results.